Unified Symmetry: In the Large and In the Small; Coral Gables, Florida, February 2-5, 1995

9423132 Kursunoglu The approach for a unified view is central to much of theoretical physics. This conference on "Unified Symmetry: In the Large and In the Small" to be held in Coral Gables on Feb. 2-3, 1995 seeks to understand better the links between the smallest constituents of matter, the elementary particles and the building up of large scale structure in e.g. galaxies, as this occurs in for instance the early universe. The broad exchange of information and ideas in this conference is likely to yield interesting new insights into there problems. ***